Genetic Covariances Among Life History Traits: The Effect of Novel Environments

Ecological and genetic theory predict that there should be trade-offs between life history traits such as reproductive output and lifespan. Genes that result in greater reproduction should also produce shortened life span. This theory, if correct, supports the idea that senescence has a genetic basis and that senescence is a consequence of normal processes that favor increased reproduction at the expense of shortened lifespan. Furthermore, this theory points a way, in principle, to genetic modification of fertility and lifespan. While some experimental observations support this expectation of trade-offs, many do not. The absence of trade- offs in a number of experimental studies may be a consequence of the testing of organisms in environments to which they are not adapted, as would be the case when wild-caught organisms are brought into the laboratory. Under this hypothesis, some individuals will carry genes that fortuitously are favorable in a new environment. Those individuals will be generally more vigorous than other individuals that by chance carry genes that are not favorable in the new environment. This situation will produce a pattern of positive associations between life history traits, rather than a pattern of trade-offs. However, the positive associations should be a transient phenomenon, and as populations adapt to their new environment, the expected pattern of trade-offs should be reestablished. These experiments will test the robustness of basic theories underlying the evolution of characters such as lifespan, and the predictive value of the theory in novel environments, such as would occur during global climate change.